Comparing Nuclear and Chloroplast Phylogenies in Saxifragaceae and Related Rosids

9307000 Soltis Phylogenetic analysis of variation in the chloroplast genome (cpDNA) has dominated the past decade of systematic research in plants. Although there are numerous advantages of cpDNA variation in retrieving phylogeny, several factors can potentially, contribute to discordance between the actual organismal and cpDNA- based phylogenies, including taxon density, heterogeneity of evolutionary rates, lineage sorting, and chloroplast capture. Systematists therefore concur that comparison of nuclear and cpDNA- based phylogenies is critical. This project will therefore address an important need in plant systematics: the comparison of existing cpDNA-based phylogenies with those derived from nuclear gene sequences. The approach taken will be hierarchical beginning at the species level, moving to closely related groups of genera, all 30 genera of Saxifragaceae sensu stricto, and ultimately to associated rosid families. Sequences will be obtained from the entire internal transcribed spacer (ITS) or 18S regions of nuclear ribosomal DNA (rDNA), depending on the taxonomic level of inquiry. Preliminary data indicate that these regions are evolving at appropriate rates for each of these taxonomic levels. Comparison of cpDNA-and nuclear DNA-based phylogenies is particularly important in groups, such as Saxifragaceae s.s., that are noted for hybridization and chloroplast capture and for which the cpDNA-based phylogenies may consequently be suspect. The hierarchical approach proposed may also provide new insights into the patterns and phylogenetic impact of past hybridization.